Modeling the Chemical Activity of Hydrophobic Organic Com- pounds in Water in the Presence of Co-Solutes

9223656 Jafvert This is an award to support research, the objective of which is to determine the aqueous concentrations of select hydrophobic organic compounds, solubility of is enhanced by the presence of specific co-solutes of intermediate molecular weight. Research is expected to elucidate the mechanisms of enhancement and lead to an assessment of the environmental impact this characteristic has on the mobility and fate of the hydrophobic compounds selected for study. The investigator plans on using fluorescence quenching methods in his research to infer mechanistic information at and below the solubility limits for the selected hydrophobic organic compounds. He expects to formulate mechanistic and semi-empirical models that characterize the processes leading to solubility, determine the constants associated with these models and evaluate the quality of the models by conducting laboratory experiments. Results of this work are expected to increase our understanding of processes that control the movement and fate of a class of organic chemicals of limited solubility in water when they are subjected to environmental conditions that enhance their solubility. This enhanced understanding may be applied to assessing and modeling the impacts of hydrophobic hazardous chemicals contained in aquatic sediments as a step design of physical, chemical and biological remediation processes.